ROW: Generic Relationships in North American Astereae (Compositae) Using Chloroplast DNA Restriction Site Mapping

Evolutionary relationships among the 135 genera of sunflowers of the tribe Astereae, an ecologically important group especially in the American West, are poorly known. What discussion of this topic there has been in the literature has concentrated mostly on possible modes of change in chromosome numbers within the tribe, but even that issue remains unresolved. Dr. Meredith Lane, under a Career Advancement Award, will work in the laboratory of Dr. Robert Jansen at University of Connecticut to learn the powerful new techniques of chloroplast DNA restriction site mapping. She will use these methods to study 33 genera in the complex, to obtain comparative data. These data will be used in a computer-aided phylogenetic analysis and compared to a similar analysis of morphological data. Such a phylogeney will help resolve the question of the mode of chromosome number evolution in the Astereae and will clarify intergeneric taxonomic relationships. A number of specific questions about the taxonomic status of several problematic genera such as Lessingia and Benitoa, and Chrysothamnus and Ericameria can be answered using the comparative DNA information. Work will also begin on the large genus Haplopappus and its relatives. Dr. Jansen's laboratory is a very active one, and collaborative interactions with other systematists will enhance possiblities for future research by Dr. Lane.